CONFERENCE: First International Meeting of the Society for Behavioral Neuroendocrinology; to be held Baltimore, MD, May 28-June 1, 1997

Rissman 9604845 Support is provided to cover the registration fees for undergraduate and graduate students attending the First International Meeting of the Society for Behavioral Neuroendocrinology to be held in Baltimore, Maryland on May 28-June 1. The Society for Behavioral Neuroendocrinology is a broadly based, professional scientific society, committed to understanding the reciprocal interactions between hormones, the central nervous system, and behavior. The goal is of this first meeting and of the society is to bring together a group of scientists from different fields and disciplines with an interest in behavioral neuroendocrinology to promote both the exchange of knowledge and ideas, and to better foster integrative research activities.